NSF Workshop on Transportation Cyber-Physical Systems - Participant Support

This project provides participant support for the 2014 Transportation CPS Workshop, enabling a broad range of leading researchers spanning academia, industry, and government to develop an ambitious research agenda at the intersection of transportation systems and cyber-physical systems, together with a workshop report that crystallizes this agenda. The workshop addresses an important area of exploration problems of great impact to society: cyber-physical systems in the automotive and aerospace domains, including connected vehicles and their security, safety, and verification, stand to save time, fuel costs, and lives lost to accidents. The project supports community building and ensures multiple and diverse perspectives are included.